Biodiversity of the Russian Far East: Sakhalin Island

"Biodiversity of the Russian Far East" is a long-term international effort
to document the diversity of plants and animals that occupy the landmasses
that surround and enclose the Sea of Okhotsk. This region is one of the
most biologically diverse yet poorly known areas within the northern hemisphere. At the same time, compared to most other high-latitude regions of
comparable size around the world, its biota is relatively undisturbed.
For political reasons, but also because of its remoteness and severe
climate, all but a few Russian biologists have ignored this region.
Information about the plants and animals of Okhotskia is largely unknown
outside of Russian and what little is available is published in Russian
and thus relatively inaccessible. Each summer since 1994, three-dozen
scientists, along with their students, from the University of Washington,
the Far East Branch of the Russian Academy of Sciences, and the Sapporo
and Hakodate campuses of Hokkaido University, Japan, spend eight weeks
exploring remote islands and continental shorelines, utilizing land-based
field stations or ocean-going Russian research vessels. While our primary
center of focus has been the island biotas of the Kuril Archipelago, our
destination over the next two years will be Sakhalin Island. Our goals
are to record the detailed species-level diversity of life in aquatic and
terrestrial habitats of the Russian Far East as a prologue to
investigations of biological patterns and processes, and as a basis for
the development of conservation strategies for this part of the world.

Biological materials from lichens to liverworts, from spiders to frogs are
being collected, curated, and made available to specialists around the
world. Dozens of species new to science are being named, described, and
classified, and numerous scientific and popular articles are being
published. In the area of conservation, our work is providing an
important foundation of information that will promote long-term
environmental protection of these unique biotas. Finally, our
biodiversity studies in the Russian Far East contribute significantly to
education and to the development of human resources in science at the
undergraduate, graduate, and post-graduate levels. Since 1994, the
project has provided financial support and direct involvement in field and
laboratory research for dozens of students. With major responsibility for
collecting, identification, and curation, as well as data collection,
analysis, and interpretation, students share authorship on scientific
publications. International collaborative interaction between students
and scientists of diverse interest and training provides unique
opportunities to address important new questions ranging from comparative
biology to conservation.